The Nature of Deformation within the Nankai Accretionary Prism Toe

This integrated study of the nature of deformation at the toe of the Nankai prism will include an numerical calculation of particle displacement and deformation, a measurement of ductile fabrics in clay-rich sediments at ODP site 808 and Nankai Trough area and experimental deformation of the Nankai clay-rich sediments. The work will be carried out by a graduate student under the PI's supervision and will provide first-order estimates of the amount and distribution of diffuse deformation in Nankai prism and may enable the proof and refinement of the proposed analysis techniques.